Constructive Set Theory: Forcing, Large Sets, and Mathematics

Abstract

Award: DMS-0301162
Principal Investigator: Michael Rathjen

The general topic of Constructive Set Theory originated in John
Myhill's endeavour to discover a simple formalism that relates to
Bishop's constructive mathematics as classical Zermelo-Fraenkel Set
Theory (with the axiom of choice) relates to classical Cantorian
mathematics. Constructive Zermelo-Fraenkel Set Theory (CZF) provides a
standard set theoretical framework for the development of constructive
mathematics in the style of Errett Bishop. One of the hallmarks of
constructive set theory is that it possesses a canonical
interpretation in Martin-Lof's intuitionistic type theory which is
considered to be the most acceptable foundational framework of ideas
that make precise the constructive approach to mathematics. The
interpretation employs the Curry-Howard `propositions as types' idea
in that the axioms of constructive set theory get interpreted as
provable propositions. There are central questions that have guided
researchers in classical Cantorian set theory over the last 50
years. The objective of the research to be undertaken is to pursue
similarly central questions for constructive set theory. Roughly
speaking, these are questions addressing the independence of
set-theoretic principles (via realizability notions and forcing over
Kripke models), the role of large set axioms, and the formalization of
mathematics within such a framework. The method of forcing featured
prominently in Cohen's famous independence results regarding the axiom
of choice and the continuum hypothesis. In a similar vein, forcing
methods germane to the intuitionistic context, as well as
realizability structures, will be employed to tackle problems of
independence on the basis of CZF. The theory of large cardinals has
dominated research in classical set theory for the last 40 years. In
the context of intuitionistic set theories large cardinal axioms have
to be replaced by large set axioms. A central part of the proposed
research will be concerned with studying notions of largeness couched
in terms of elementary embeddings. It is hoped that this project will
also shed light on the role of large cardinals in devising strong
ordinal representation systems in the area of proof theory called
ordinal analysis.

Constructive mathematics distinguishes itself from its traditional
counterpart, classical mathematics, by insisting that proofs of
existential theorems in mathematics respect constructive existence:
that an existential claim must afford means for constructing an
instance of it. The foundations of a systematic approach to
constructive mathematics, known as intuitionism, were laid in
Brouwer's response to the foundational crisis in mathematics at the
beginning of the 20th century. Nowadays, in computer science,
constructive formal systems based on type theory, or on the
Curry-Howard isomorphism have become increasingly widespread for
program development and language design. The concepts of program and
constructive proof are connected in a deep way. Via this connection
proofs are used to support the development of reliable software
systems. The axioms of so-called Zermelo-Fraenkel Set Theory provide
an accepted framework for formalizing classical mathematics whereas
Constructive Set Theory (briefly CST) is a universal framework for
developing mathematics from a constructive viewpoint. This project is
motivated by the desire to answer central questions regarding CST,
questions that have shaped the research activity in classical
Cantorian set theory for more than half a century. The work is
expected to substantially enhance our understanding of models of
constructive set theory and thereby enlarge the realm of
constructivism.